Topical Conference on Time-Dependent Positioning-Modeling Crustal Motion

This award will support a Topical Conference on Time-Dependent Positioning: Modeling Crustal Motion. Topical conferences are sponsored by the American Geophysical Union and are designed to promote opportunities not normally available through the format of large meetings. The topic to time-dependent positioning spreads into a variety of disciplines, including geophysics, seismology, tectonophysics, geodesy, volcanology, hydrology, and global climate change. The conference objective is to bring these disciplines, together to discuss new modeling techniques used in the geosciences, and to review and evaluate concrete results from these related fields.